An International Conference on Order Statistics and Nonparameterics: Theory and Applications, September 1991, Alexandria, Egypt

Technical Narrative: This proposed conference, organized by North Carolina Central University and Cairo University, is scheduled for 18-20 September 1991 in Alexandria, Egypt. Topics to be covered include the entire spectrum of nonparametric and order statistics. This conference will be a separate and distinct session associated with the International Statistical Institute general meeting. This proposal supports the participation of approximately 10 U.S. mathematicians. Conference participants will present papers that will be compiled and published as a conference volume. This conference in nonparametric and order statistics fulfills the program objective of advancing scientific knowledge by enabling leading experts in the United States, Egypt and elsewhere to combine complementary talents and present research results in areas of strong mutual interest and competence.